Service Diferentiation and Overload Control in Internet Servers

The increasing volume and evolving types of Internet applications have been
demanding enhanced service from the Internet infrastructure. A significant amount of
work is in progress on the networking aspects of the Internet. To complement these
efforts, the Principal Investigator (PI) proposes to explore the issues at the server
level. Specifically, this proposal addresses the support for service differentiation and
overload control in Internet servers.

Support for service differentiation at the servers is necessary because of
two primary reasons. First, evolving applications like e-commerce and continuous media
transmission will be highly benefited by the differentiated service model. Second, the
adoption (most likely) of some form of service differentiation (at the router level)
in the next-generation Internet will demand the servers to reciprocate in their
services. The proposed research in this context will be approached in two steps: (a)
formulation of algorithms for service differentiation, and (b) evaluation of the
effectiveness and performance of service differentiating Internet servers.

Overloads at the servers are unavoidable because of the bursty and
unpredictable nature of the Internet traffic. Overload causes severe performance
degradation or even crashes the server. E-commerce businesses incur serious financial losses
because of the overloaded servers. The performance degradation of overloaded servers
may be greatly reduced by incorporating overload control mechanisms at the
servers. The PI proposes to address the design and implementation of overload control
mechanisms at the application level.

In general, the performance and functionality of the Internet servers will
be greatly enhanced by the adoption of service differentiation and overload control
mechanisms.

The outcome of the proposed research will have a broader impact on the
Internet infrastructure and on its users. Specifically, the proposed techniques will
be complementary to the efforts in the direction of the next-generation
Internet, and will be helpful for the e-commerce industry. They will also facilitate the
support of continuous media objects in the Internet. At the local level, the
research will have a positive educational impact on the students of Michigan State
University.